Research Initiation: Efficient Algorithms for Some Product-ion Planning Problems

This research addresses two problems. First, how does one plan production for an indefinite period when demands and costs can be forecast only for a relatively short period in the future? Second, how can a production planner schedule work on several different items on the same machine to minimize cost (the Economic Lot Scheduling Problem)? Efficient algorithms will be developed for the solution of variations of these problems.